Purchase of a Multi-User MALDI-TOF Mass Spectrometer

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Bowling Green State University will acquire a Matrix-assisted Laser Desorption Ionization - Time of Flight (MALDI-TOF) Mass Spectrometer. This instrument will be used in a wide variety of research projects, including a) investigations on novel metal-organic chromophores and materials; b) studies of de novo designed proteins for use in electron transfer and DNA damage; c) studies of supramolecular materials as anion sensors; and d) investigations on self-assembled RNA motifs.

Matrix-assisted laser desorption ionization (MALDI) time-of-flight (TOF) mass spectrometry is the technique of choice for obtaining accurate molecular weights on molecules up to and over 300,000 daltons, with extremely high sensitivity. Use of a MALDI-TOF mass spectrometer has therefore become a standard technique in studies involving biomolecules. At Bowling Green, this instrument will therefore also be used in the undergraduate Biochemistry laboratory for protein analysis.